Establishing Chemometric and Statistical Foundations of Receptor Models

Receptor modeling is a cross-disciplinary research area that finds chemical fingerprints of pollution sources. Receptor models use methods from chemometrics, chemistry, statistics, and image analysis, as well as many other fields. These models commonly use principal component analysis, and factor methods as their main ingredients. Receptor modeling requires good scientific knowledge to reasonably model observed data. For example, knowing that acetylene is a tracer for motor vehicle emissions is essential to successful receptor modeling. The methods that this research develops will be used to provide fingerprint identification of pollution sources. The research will also provide a firm mathematical basis for the methods. This research provides a firm chemometric and statistical basis for receptor modeling and is an important contribution to the Federal Strategic Area of the Environment. Receptor models will serve as unbiased scientific evidence for identifying pollution sources. Receptor models should be able to stand untarnished in legislative and court proceedings.